Quantum Theory of Low-Dimensional Condensed Matter (Materials Research)

With the advent of sophisticated experimental methods for the synthesis of highly specific epitaxially grown films (such as extremely thin films of granular metals) and layered structures (such as semiconductor heterojunctions) it has become possible to explore the properties of a variety of well characterized two- dimensional electronic systems. Various modern lithographic techniques further broaden the range of artificial two- dimensional structures that can be studied. In particular, a variety of experiments at low temperatures have revealed in these two-dimensional structures a surprising richness of macroscopic quantum phenomena: the integer and fractionally quantized Hall effect, quantum effects in the onset of superconductivity, resistance oscillations in Josephson junction arrays, and resistance fluctuations and Aharanov-Bohm oscillations in normal metals to name a few. The proposed research deals with various macroscopic manifestations of quantum phenomena in one, and especially two-dimensional systems. The work topics fall into four basic categories: 1) the quantum Hall effect, 2) quantum effects in granular, or otherwise strongly disordered thin films of superconducting material, 3) model tunneling problems involving more than one-dimensional configuration space, and 4) the properties of quasi-one-dimensional organic conductors.